SGER: Early Detection of Human Bacterial Pathogens Using Electronic Nose Technology

9807617 Nagle The investigation will methodically explore the potential for applying emerging "electronic nose" technologies to the rapid detection and analysis of a wide variety of bacterial pathogens. Rapid identification of disease-causing bacterial pathogens would significantly reduce the time required for the diagnostician to prescribe a specific antibiotic. The researchers seek to answer three questions during the twelve months term of their work: 1) Can existing gas sensors detect a wide range of human bacterial pathogens? 2) Can existing gas sensors be used for early identification of one or more human pathogens in culture? 3) Can the sensitivity of conducting polymer sensors be improved for this application by precisely controlling the geometry of the active sensing material? Gas sensor arrays of metal oxide, conducting polymers, and piezoelectric elements are to be assembled in the Biomedical Instrumentation and Biomedical Microsensors Laboratories at NC State University. These sensor arrays will be incorporated into an electronic nose instrument that has been fabricated at NC State. The NC State device and a commercial electronic nose instrument (the AromaScan A32S from the Duke University Taste and Smell Lab) will be used to sample the headspace of bacterial cultures in the Clinical Research Unit #2 at Duke University Medical Center. The sensor data will then be analyzed using normalization, feature extraction, and pattern classification algorithms at NC State University. The performance of the sensor arrays and data processing algorithms in differentiating cultured bacteria strains will be evaluated. Sensors will be tested to determine their abilities to detect at least four of ten important drug-resistant microbes. The results of these preliminary laboratory studies are expected to guide future efforts to fabricate and test a hand-held prototype instrument designed for rapid diagnosis of bacterial cultures. This exploratory investigation is believed to be the first research project to make a comprehensive and methodical investigation of the value of the underlying sensor technologies. Success from the investigation could lead to physicians prescribing a disease-specific antibiotic rather than using a broad-spectrum antibiotic until the offending pathogen is identified. Consequently, it is believed the risk will be lowered of the bacteria developing drug resistance. ***